Conference: Co-Sponsoring of 2007 SME International Conference on Advanced Manufacturing (ICAM); National Cheng Kung University, Tinan, Taiwan; November 26-30, 2007

This award provides funding for six students to travel to the 2007 SME International Conference on Advanced Manufacturing in Taiwan. This conference will give the students an opportunity to examine manufacturing practices in a rapidly developing economy, and one that is very competitive globally.

The award will enable the students to meet top researchers from around the world in an area that is important to the competitiveness of the United States. It will enhance their educational experience and enable them to function better in a globally competitive environment.